Acquisition OF a 400 MHz Solid-State NMR Spectrometer

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program will enable the Department of Chemistry at Purdue University to acquire a 400 MHz solid state Nuclear Magnetic Resonance (NMR) spectrometer. This will enhance faculty research in a number of areas, including studies on 1) photocatalysis and photoluminescent solid-state materials; 2) complex encapsulated microporous and mesoporous systems and heterogeneous catalysts; 3) structure and stability of organic solids including pharmaceutical solids; 4) nanostructured electronic materials; 5) structure and dynamical studies of polycarbonate materials; and 6) structure and synthesis of supramolecular systems based on carbohydrates. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in materials science.